Wealth Inequality and the Great Shocks of the Twentieth Century; Evidence from France 1912-1946

Until World War I wealth inequality in most industrialized economies was
high. Then, in the next half century, it collapsed. In Paris, for instance, the share of
wealth owned by the top 1% fell by half (from 70% to 35%). Although there has been
significant variation in wealth concentration in developed economies since the end of
World War II, in a historical perspective we have been living in a world of diminished
inequality. In collaboration with Thomas Piketty and Gilles Postel-Vinay, I propose
to investigate the collapse of wealth inequality by examining estate tax records from
Paris in the period from 1912 to 1946. To do so the PI plans to collect detailed information
of the composition of estates for individuals who died in Paris during the years 1912,
1922, 1927, 1932, 1937 and 1946. These years will provide access to one cross section
before and one after each of the great shocks this era such as WWI, the Great Depression,
and WWII).
Intellectual merit of the proposed activity:
Although there has been increasing recognition of the importance of the
changes in inequality that occurred between 1914 and 1950, relatively little is known
about how the process unfolded. These data will complement data sets we have
already collected from 1807 to 1902 and will permit the compilation of homogeneous series
on wealth concentration in Paris and France from 1807 to 1946 that complement
published series that run from 1902 to 1984. The data offer detailed information on
the identity of the decedents and on the nature of the wealth they left behind. This will permit a better understanding of why the very rich failed to maintain their relative
position, and why the middle class started to accumulate assets at a much faster rate
after rather than before WWI.
Broader impacts resulting from the proposed activity:
Understanding the decline in inequality that occurred during the first half of
the twentieth century is important in its own right. More recently however, a number
of economists have become interested in the consequences of the great shocks of the
first half of the twentieth century on institutions. For some, these set back the
development of private financial markets in those countries where the shocks were
worst. Yet, to understand the political economy of institutional change, it is necessary to
know exactly what kinds of people were affected by the shocks and how that may
have changed their preferences for one set or another of institutions. On another
level, we suspect that older cohorts had a much more difficult time overcoming the
adverse consequences of the shocks than did younger ones. Beyond the lost
generations on the battlefield, WWI and WWII may also have destroyed a generation
of savers. As such, studying the first half of the twentieth century may provide some
important clues at to the persistent effects of very large shocks and thus be of
relevance to present day concerns. Indeed the impact on developing economies in Eastern Europe,Latin America, Africa and elsewhere of very large shocks that
have had important effects on wealth accumulation can only be understood by turning to history.